Engineering Research Equipment Grant: Upgrading an ExistingLDV System to a Two-Color, Two-Component System

This equipment grant is for a two-component, two-color Laser- Doppler Velocimeter. The instrument will be used to measure turbulent mixed convection in complex geometries. It will also be used to measure complex turbulent flows.